Clathrin Light Chain Structure and Function

Polymerization of clathrin on the cytoplasmic side of translocating membranes causes the formation of coated pits and coated vesicles which are involved in receptor.mediated endocytosis, lysosomal assembly, secretion, transcytosis, and membrane recycling events. The clathrin molecule is composed of three heavy chains (180 kDa) and three light chains (35kDa) of two types. The goal of the proposed studies is to understand the molecular basis for the structural and functional differences displayed by the different clathrin light chains, and to analyze their role in the function of the clathrin molecule as a whole. The experimental approach involves production of monoclonal antibodies reacting with a series of determinants spanning the sequence of the known clathrin light chain forms, and correlation of light chain sequences with known biochemical functions. The monoclonal antibodies will also be used to examine the light chain distribution on native, triskelions, coated vesicles and within cells and tissues. These studies will allow correlation of the different forms of clathrin with specicalized intracellular and tissue.specific functions.